Interacting Condensed Matter Systems and Growth Far From Equilbrium

They propose projects in condensed matter physics in two general areas: nonequilibrium growth and the theory of quasiperiodic structures. The first area is the main subject of the proposal: they will investigate a model for thin film growth (ballistic aggregation), aspects of diffusion-limited growth, notably a joint experimental and theoretical project in electrodeposition, a model for fracture which maps it onto a DLA type process, flow in porous media, and an investigation of aspects of crystallization. In the second area they will explore the propagation of wavepackets in artificial quasiperiodic supperlattices.